Arctic Satellite Composite Project

Lazzara 0713843
University of Wisconsin

Funds are provided for the generation of weather satellite composites over the Arctic, centered on the North Pole, and extending into the northern mid-latitudes. Similar composites have been made for the Antarctic at the University of Wisconsin for the last fourteen years. This project aims to build on the success of the Antarctic efforts and apply lessons learned toward the Arctic. This effort will initiate the first continuous and consistent record of the state of the Arctic, multiple times per day, as captured by weather satellites. The principal investigators propose to use the collection of composites in support of long-term observations of the Arctic, as well as distribute these data sets to a broad segment of the arctic research, educational and logistics communities.